Research Initiation: Low Schmidt Number Heat/Mass Transfer With Applications to Metals Casting

This study concerns a fundamental investigation in thermal systems. Specifically, an experimental study of low Schmidt number natural convection is being conducted in a rectangular enclosure with constant mass flux on two facing vertical walls.